Historic Supreme Court Briefs and Arguments Web Site

This is an infrastructure-building award designed to enhance access to research and teaching materials in constitutional law and constitutional history. The PIs will provide a free, searchable, internet-accessible web site containing major Supreme Court briefs, oral arguments, and related materials over the course of the Court's history. Initial case selection will be made by scholars and librarians at Yale and the Supreme Court Historical Society. Copies of the briefs, oral arguments, and related materials will then be transferred to electronic format by a data conversion service. The web site will have several significant advantages over current printed and electronic versions, including full searchability, easy accessibility, and easy citability. Cases will be selected in accordance with their historical importance by criteria that can be evaluated at the web site.